Industry-University Cooperative Research Program on a Comprehensive Approach to Control Structure Synthesis for Decentralized Control

Control system synthesis involves the interplay between the creation and assessment of alternative control structures and controller designs. It consists of two tasks: control structure selection and controller design. Control structure selection entails the selection of measurements, manipulated variables and their feedback interconnections. Specifications of measured outputs and manipulated inputs is usually determined from the control objectives which include economic factors, operational constraints, safety and other practical considerations. Once this is accomplished, the designer must then decide how the selected measurements and manipulated variables will be interconnected to effect feedback control and satisfy the given design requirements. In a fully centralized control system, all of the manipulated variables receive feedback information from all of the measured outputs. For large scale systems such as chemical plants, power systems, etc., some form of decentralization is necessary otherwise the control system becomes too costly and cumbersome. The underlying principle in decentralization is the decomposition of the system into subsystems followed by their independent control. The design of a decentralized control scheme involves the search for a structure which minimizes the interactions between variables but which also best approximates that attainable with a fully centralized system. In this Industry University Cooperative Research project the focus will be on the design of decentralized control systems as applied to the chemical process industry. The research will seek to develop interaction measures appropriate for consistent, comprehensive analysis of generic control structures. The relationships between such measures and important close-loop properties will be explored. A synthesis procedure based on these relationships will be constructed to allow analysis of large industrial control systems and lead the designer to the preferred structure. An interactive CAD software will be developed to implement the synthesis. The methodology will be tested on industrial examples which will be provided by Tennessee Eastman Kodak and General Companies both of which are the industrial collaborators for this research program. Design of decentralized control laws will be addressed. This will include developing design tools that permit assessment of important feedback properties and may consequently be used for final screening of control structures.